Technical Support: Request for an ICP-MS Technician at the University of Notre Dame

9315930 Neal This award provides partial funding to support a technician assigned to the inductively-coupled plasma mass spectrometry (ICP-MS) laboratory in the Department of Civil Engineering and Geological Sciences at the University of Notre Dame. The ICP-MS instrument was recently obtained by Notre Dame University through matching funds from a grant from the NSF Academic Research Infrastructure Program. It will be used primarily by students and staff of the University involved in research and teaching projects in the area of environmental geochemistry, pollution control, petrology, paleoclimatology, limnology, and groundwater hydrology. *** 9406684 Johnson This award provides partial funding for the support of a technician assigned to the Radiogenic Isotope Laboratory in the Department of Geology and Geophysics at the University of Wisconsin, Madison. The technician will assist in the operation and maintenance of the laboratory's equipment that includes a multicollector thermal ionization mass spectrometer and associated instrumentation for sample preparation and data analysis. The laboratory is a resource for mass spectrometric analysis needed in research and teaching projects in the earth sciences by a large number of researchers on-campus and off-campus. Research applications include work on Arctic Ocean sediments, mantle geochemistry, volcanism, geochronology of carbonates in the Michigan Basin and Wisconsin Arch provinces, and Archean and Proterozoic granites. The technician will also participate in the technical developmental work of the laboratory, including the development of new methods for the quantitative measurement of the isotopes of hafnium. ***